Environmental Engineering Education Conference, August 18-20, l991 at Oregon State University, Corvallis

This is an award to support conduct of a conference to address issues of importance to the education of environmental engineers, a significant component of which involves conduct of research by university faculty with the assistance of students primarily at the graduate level. Topics planned include consideration of undergraduate environmental engineering education, inclusion of hazardous waste topics and innovative technologies to deal with them in courses, concerns relating to the role of research in graduate education and innovative teaching concepts including use of computers in classrooms and research. This conference will be conducted by the Association of Environmental Engineering Professors under auspices of Oregon State University in joint sponsorship with Stanford University and in cooperation with the American Academy of Environmental Engineers and the Environmental Engineering Division of the American Society of Engineering Education. Joint financial support is expected from the Western Region Hazardous Substance Research Center at Oregon State University. The results of this conference are expected to be utilized for program planning.